III:Small: Commugrate -- A Community-based Data Integration System

The goal of this project is to build Commugrate, a community-driven
data integration system that capitalizes on the information gained
from the interactions of communities of humans with data sources.

Commugrate tackles key challenges raised by the increase in the
number of information sources used in science, engineering, and
industry, as well as the need for large-scale data integration
solutions to enable effective access to these sources. These challenges
include schema matching and mapping, record-linkage, and data repair.

More specifically, Commugrate (i) utilizes both direct and indirect
contributions from different types of human communities with a focus on
the latter contributions, (ii) solves key data integration issues using
new evidences like usage and behavior data which have not been previously
used, (iii) adopts a new technique for schema matching, which defines
a new class of its own, namely usage-based schema matching,
(iv) introduces the first of its genre technique for record linkage based
on entities' behavior, and (v) provides an adaptive feedback system to
improve the quality of the data by making the best use of users feedback.

Commugrate has a broad impact across multiple segments of society as data
integration is by far the most important and in the same time vexing issue
in many areas in sciences, engineering, and industry. Furthermore,
leveraging users' interactions with data sources, especially indirect
interaction, may provide several benefits and help solve many intractable
data integration tasks which cannot be done without human intervention.

PhD students will pursue research in this project. Publications, technical
reports, software and experimental data from this research will be
disseminated via the project web site at
http://www.purdue.edu/cybercenter/commugrate.